SBIR Phase I: Low Cost X-ray Detectors for Rapid Dimensioning of Parts

*** 9760607 Smith This Small Business Innovation Research (SBIR) Phase I project will explore linear arrays of amorphous silicon (a-Si) thin-film transistor (TFT)-photodiodes to achieve a large cost reduction and an increase in throughput and spatial resolution for computed tomographic (CT) systems. These systems are targeted to the agile manufacturing and rapid prototyping markets. A technique for compensation of the photocurrent persistence characteristic of a-Si will be examined, and a detector and data-acquisition system based will be developed for this technology. Successfully implemented, a-Si detectors will improve both the price and performance of CT systems used for dimensioning of production parts and for reverse engineering of parts lacking digital descriptions. These improvements in price and performance will accelerate the introduction of CT as an important tool for these rapidly evolving technologies. ***